REU: Research in Basic Biology Program

This is a Research Experiences for Undergraduates project. It provides research experiences for eight students at Meharry Medical College. Students will participate in projects involving biochemistry, biophysics and molecular biology.